Crossroads of Continents * RFD Alaska

This proposal requests support for an exhibition on Native cultures of Alaska and Siberia for travel to Native and non- Native communities in rural Alaska. The exhibition consists of 200 small artifacts from Siberian and Alaskan archeological and ethnographic museum collections, archival photographs, Native craft and traditional arts, 20th century graphic arts, and videos. Curriculum packets and educational materials and videos will be prepared for use in the exhibition venues. These instructional materials, including an exhibit catalogue, will be designed to serve as "stand-alone" components as well. The Smithsonian Arctic Studies Center has selected "Crossroads of Continents *RFD Alaska" as a prototype project that will lead toward establishing standards for museum-based educational outreach programs for use in native communities in rural regions where professionally staffed museums usually do not exist. This goal is especially challenging in Alaska, where distances are great, population centers are small, and there are unique problems of transportation, communication, security, and language to be overcome. The project is an ideal one in that much of the basic research for the exhibition has already been accomplished. What is needed now is to develop a Native education component and local initiatives to accompany the core exhibit, and to produce the exhibition and the exhibition catalogue. Once developed, the experience of this project will serve to guide future programs not only in Alaska, but also throughout the Circumpolar North.